A Penrose Conference: Effects of Triple Junction Interactions at Convergent Plate Margins - April 1994, Eureka, CA

9319219 Sisson This action provides partial support for a Penrose Conference: "Effects of Triple Junction Interactions at Convergent Plate Margins" to the held April 1994 in Eureka, California.